Neutrino Physics, Baryon Number Non-Conservation, and Astrophysics at Super-Kamiokande and the T2K Long Baseline Experiment

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5). This three-year award will fund the continued research of the CSUDH group at the Super-Kamiokande (Super-K) neutrino observatory and nucleon decay experiment including efforts involving the T2K long-baseline neutrino oscillation project. They will continue their studies on neutron- antineutron oscillations, will work on new nucleon decay analyses and will participate in Super-K low energy, atmospheric neutrino, and particle astrophysics research.

The broader impact of the program includes involving several CSUDH undergraduate students. This project will also expand research options to students to include the accelerator-based particle beam studies with T2K. This project will have broader impacts by allowing the continued involvement of a student body that draws a majority of its members from groups that are underrepresented in the sciences in ground breaking fundamental research.